Studying the Optical-Infrared Emission of Gamma-Ray Bursters using the AEOS Telescope

AST-0123487
Smith, Ian

A sensitive CCD camera system to enable imaging photometry, spectroscopy and polarimetry of the out burst and the following brightness decay of Gamma Ray Bursters will be designed, fabricated, assembled, aligned, tested, integrated and calibrated. In year 1 of this proposal the instrument will be located at the Coude room of the Air Force Advanced Electro-Optical System (AEOS) on Haleakela Hawaii. During year 2 the instrument will be mounted on the trunion axle of the alt-azimuth mount of the telescope. The instrument's operation will be documented to the extent that Air Force instruments scientists in residence on Maui will maintain the routine operation of the instrument.
***